RIA: Learning-Based Object Recognition from Images

This is the first year of a three-year continuing Research Initiation Award. The resarch aims to develop theiries and techniques of automatic learning for object recognition from 2D images. Visual recognition is recognized as a veruy difficult task due to large image variations, high complexities, and a huge amount of data in the images that computers muyst deal with in the real world. Automatic learning is crucual for achievement of versatile and reliable vision systems. The new approach to learning in this research project is general, flexible, adaptive, and efficient. The proposed methods will be tested on a large number of real-world images to recognize learned objects and identify their locations in the images.